Spectroscopic and Thermodynamic Studies on Adsorption of Structurally Modified Surfactants

It is proposed to examine the effects of some promising structural variations on the adsorption of surfactants such as xylene sulfonates, ethoxylated sulfonates, and ethoxylated alcohols. Fluorescence, electron spin resonance, resonance Raman and NMR spectroscopy will be used to characterize the microstructure of the absorbed layers and calorimetry for fundamental thermodynamic information on the absorption of these surfactants. The adsorption of mixtures of these surfactants as well as mixtures with nonionic ethoxylated alcohols on solids will be investigated in detail using these techniques in conjunction with surface tension, electrokinetic and wettability measurements. This comprehensive approach should shed new light on interactions between surfactants during their absorption as well as self-association and orientation during packing at interfaces and help to identify optimum surfactant structure and system conditions for different processes.